SHF: Small: Footprint Models and Techniques for Multi-core Cache Management

This research aims at developing new theories and techniques to
better understand and manage shared memory cache in multi-core architectures.
The core concept is program footprint, which is the amount of memory access in a period of
execution. Complete measurement requires counting data access in all
execution windows, which is too costly. This
research develops computational methods to first make all-window
analysis feasible through a set of new profiling algorithms and then
make this analysis cost-effective by reducing the cost through statistical
inference, sampling, and parallel profiling and effectively obtaining
this information in real time as a program executes. Footprint
information is essential in analyzing cache sharing between programs
and program tasks. It enables the second part of the project, a set
of tools that predict the performance of parallel workloads without
parallel testing. In addition, the footprint information enables a
fundamentally different approach to common techniques. In the third
part, the project develops a new cache-hint insertion tool to
approximate optimal caching and a
memory-performance tuning tool to be used by software developer.

As multi-core processors become commonplace and cloud computing is
gaining acceptance, more applications are run in a shared environment.
The outcome of this research will fundamentally alter the way
programmers understand and improve memory performance on multi-core
systems. Software developers and hardware engineers will have a new
tool set to tackle the complex problem of managing on-chip memory for
not just sequential but also parallel code and for not just achieving
good performance but also for ensuring stable performance in a dynamic
environment. The broader impacts of this research will include
deeper understanding and more precise characterization of locality
in computational processes, which has implications in other
computing-related disciplines, and memory efficient software and
hardware design, which saves energy and cost and has broad economical
and social benefits.